Acquisition of a 500-MHz NMR Spectrometer Console Upgrade and Cyberinfrastructure Capability

With this award from the Chemistry Research Instrumentation and Facilities: Multi User program (CRIF:MU), the Department of Chemistry at the University of California-San Diego will acquire a cyber-enabled 500 MHz Nuclear Magnetic Resonance (NMR) spectrometer with cyber-infrastructure capability. The spectrometer will be utilized in various research projects in areas such as organotransition metal chemistry, development of polycarbonate doping resins for ligand deposition on commercially available CDs, nonribosomal peptide biosynthesis, chiral metal-organic frameworks and metalloprotein inhibitors, natural products from marine sources, symmetry of hydrogen bonds, isotope effects on acidity, and fluorescent nucleoside analogues.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic/inorganic chemistry and biochemistry.